SHF: SMALL: Dependently-typed Haskell

The primary goal of this project is improve the stability of software
systems. Many modern programming languages use static type checking to
eliminate errors from programs. However, the type systems that
underlie these checkers are conservative and reject several classes of
useful, correct programs. In particular, the techniques of generic
programming, which optimize data structures, generalize interfaces and
eliminate boilerplate in program development, are difficult to type
check. Although dependent type systems provide flexibility in type
checking, particularly with respect to generic programming, they have
not yet been integrated into realistic programming languages.

The proposed work of this project will augment a mature, general
purpose, statically-typed programming language with support for
dependently-typed programming. Specifically, the project will extend
the source and intermediate languages of the Glasgow Haskell Compiler
(GHC). Although generic programming is the key application area, the
Haskell extensions proposed here will enhance the capabilities of
dependently-typed programming in Haskell in many domains. This project
is in collaboration with the designers and implementers of the GHC
compiler at Microsoft Research, Cambridge. The team includes world
leaders in the areas of dependent type systems, generic programming,
language design and implementation. As GHC is an open-source project,
the extensions to Haskell will be freely distributed. Furthermore, the
project will have educational benefits through the funding of doctoral students
and the integration of its results into advanced graduate and
undergraduate courses.